Career Advancement: Influence of Soil Parameters on PCB Contaminants Removal from Soils Using Supercritical Extraction

The objective of this research is to examine the effect of some important soil variables under controlled laboratory conditions on supercritical extraction of polychlorinated biphenyls (PCBs) from soils. Furthermore, it is also proposed to evaluate the properties of soils before and after supercritical extraction is performed. Numerous sites in this country are contaminated with PCBs. The remediation of PCB contaminated sites requires the excavation and treatment of the contaminated soil. This information this research will provide is required before treated soil can be safely returned to its original site.